NJCNET/NSFNET Connection

9318054 Ikle The National Jewish Center for Immunology and Respiratory Medicine is a world-class research and clinical care institution specializing in chronic respiratory allergic, and immunologic diseases. Its physician-scientists depend on access to current knowledge bases and state-of-the-art telecommunications. This proposal is to connect the nearly completed internal network at National Jewish (NJCNET) to the NSFNET through Colorado Supernet using T1 service. The co-investigators have designed and implemented the NJCNET and have the expertise needed to support TCP/IP. This connection will greatly benefit the institution by providing access to BITNET and Internet mail, GENBANK and EMBL data bases, FTP, supercomputers, image transfers and financial support to maintain this connection in the future. ***